Mathematical Sciences: Joint Asymptotic Distribution of Autoregressive Coefficient and Order Estimators

This project will explore the problem of jointly estimating the order and the coefficients of an autoregressive process. Autoregressive processes serve as a good model for temporal data with dependence on the past. The order of the autoregressive process determines how far back this dependence reaches. The standard estimation procedures for the coefficients assume that the order of the process is known. New procedures need to be invented and studied if a joint estimation is sought.